SCREMS: Computing Equipment for Mathematical Science at UMass Amherst

This grant will enable the Department of Mathematics at the University of Massachusetts-Amherst to purchase a Beowulf computer cluster to support computationally intensive research in the mathematical sciences. This research will be concentrated in the following areas: (1) computational investigation of cohomology of arithmetic groups and Kazhdan-Lusztig cells in Coxeter groups, (2) investigation of heat transfer and turbulent shear flows in viscous incompressible fluids, (3) development of multiscale computational methods for hydrid deterministic/stochastic systems, (4) simulation of nonlinear multi-dimensional phenomena in optics and condensed matter physics, and (5) development and testing of novel closure strategies using equilibrium and nonequlibrium statistical mechanics. Each of these projects require computational resources that the department does not have currently. These projects will also have a significant impact on the education and training of both students and young researchers in the mathematical sciences at the University of Massachusett-Amherst. As such, the equipment in this grant is part of a continuing effort of the department to build its computational program and to bring the frontier of research in mathematics to all levels of university education.